Development of an Advanced Laboratory for Lightwave Communication

Engineering - Engineering Technology (58)

This A & I project adapts material developed at the Northeast Center for Telecommunications Technology (NCTT) to improve the existing lightwave communication laboratory at Three Rivers Community College. The project is adding fiber optic wavelength division multiplexing capability to their existing laboratory and providing students with a hands-on experience with sophisticated equipment. They are adapting four experiments developed by NCTT and are considering four new ones based on suggestions by their industry partners. In the evaluation effort, they will analyze student report, written exams, and the students' performance on practical exams to determine if the students achieve the learning objectives. The dissemination plan involves presentation to PHOTON project participants, at the NCTT workshop, and at national conferences along with publications in the PROTON and NCTT newsletters and in professional journals.